Molecular Mechanics

In this project in the Theoretical and Computational Chemistry Program of the Chemistry Division, Professor Allinger plans to extend the capabilities of his renowned computer program to enable it to better predict the geometries and properties of a wide variety of molecules. The PI will develop the MM3 program so that it will be able to handle the common functional groups, delocaized electronic systems, and heterocyclic compounds. A more sophisticated formulation of the approach for calculating vibrational spectra will be developed as well, and increased use will be made of ab initio electronic structure calculations for the parametrization of the method.